GOALI: A Novel Field-Induced Charge-Separation Laser (FICSL) for Ultra High-Speed High-Efficiency Modulation

Objective:
An entirely new type of semiconductor laser modulation process will be explored in this industry-university collaborative project. A novel Field-Induced Charge Separation Laser (FICSL) structure will provide direct modulation of the gain to enable much higher modulation speeds relative to conventional diode lasers in which current modulation is employed. Preliminary modeling suggests modulation speeds in the 100 GHz range. Collaborations with Ziva Corp., our GOALI partner, will help guide these activities.

Intellectual Merit:
The FICSL involves new physics, that of separating holes and electrons with an applied field via a gate structure placed above the active gain region in order to directly modulate the gain. An enhanced understanding of laser dynamics in multi-terminal configurations should result. The team brings high levels of expertise in MBE growth (Palmstrøm), high-speed transistors (Rodwell) and efficient, high-speed vertical-cavity lasers (Coldren) to uniquely address this new problem area. The UCSB labs in MBE growth, III-V nanofabrication, and materials and device characterization, are second to none for the VCSEL-like laser studies to be doneS. Complementary skills exist at Ziva.

Broader impact:
Such more-efficient, higher-speed devices may revolutionize optical interconnect approaches and enable more efficient computers and data centers. Interaction with Ziva greatly benefits the students involved. New processes developed within NSF-NNIN facility, will be available to future generations of students. Physics will be integrated into the ECE227 series, and it will be disseminated in journal and conference publications. The co-PIs and graduate students will continue to participate in one or more of the ten internship programs for under-represented minorities, high school, and undergrad students that are sponsored by NSF-MRL, NNIN, & COE.